CC* Regional: Extended Vital Education Reach Multiple Organization Regional OneOklahoma Friction Free Network (EVER-MORe-OFFN)

The CC* Networking Infrastructure project, Extended Vital Education Reach Multiple Organization Regional OneOklahoma Friction Free Network (EVER-MORe-OFFN), expands the network capabilities of Cameron University (CU), East Central Oklahoma University (ECU) (both upgraded to 10Gbps), and Oral Roberts University (ORU) (upgraded to 100 Gbps) by connecting them to the OneOklahoma Friction Free Network (OFFN) through community-based Science DMZ technologies. Using 10Gb and 100Gb channels, OFFN interconnects Oklahoma's research organizations. OFFN allows the researchers at each institution to reliably connect to supercomputers and big data repositories, increase computational capabilities, and increase inter-institution collaboration.

Previously, researchers at the EVER-MORe-OFFN institutions lacked throughput speed when dealing with large data sets. The EVER-MORe-OFFN expansion of OFFN affords these researchers access to a high-speed and efficient network allowing for analyses and simulations by researchers and an expanded repertoire of course projects and assignments available to professors. Additionally, the High Performance Computing Center at ORU is open to the collaborating universities through this expansion.

Adding these three institutions increases the total OFFN Institutional participation to 12 institutions. As OFFN expands, so does the serviced population which provides new access to the necessary resources to create research opportunities previously not afforded. This project has broader implications for the scientific community including the next generation of researchers and scientists unlocking the door to many exciting discoveries.